Theoretical Studies of Low-Energy Electron Molecular Ion Collision Processes

Theoretical calculations of the collisions of electrons with molecular ions are performed using both time-dependent wavepacket techniques and the complex Kohn variational method. The goal is to make quantitative predictions of the details of the cross sections for a broad range of molecular collisions.